RPG: The Identification of Novel Developmental-Control Genes

9407840 Emerson ABSTRACT One of the oldest questions in animal biology is "how does a single cell - the fertilized egg - give rise to a complex adult body form?". More specifically, how is the genetic information, which is identical in all cells of an embryo, expressed such that cells become different? Dr. Emerson proposes to use recently-developed molecular biological techniques, such as the polymerase chain reaction (PCR), to address these questions. Since PCR requires only small amounts of tissue, it is ideally suited to the identification of new genes that control important developmental processes in the mammalian embryo.